Scientific Visualization

The proposed project in scientific visualization will enhance undergraduate courses in science, mathematics, and engineering. It will also improve the education of undergraduates who plan to pursue a career in teaching science and mathematics at the pre-college and college level. Students will learn about using visualization as a tool for discovery and understanding complex phenomena. In addition, they will also learn about state-of- the-art visualization techniques that allow scientists and engineers to examine huge amounts of data with higher efficiency and greater comprehension. Finally, students will be provided with hands-on experience of software packages that are widely used in the field. the project injects a component into our curriculum that heretofore has not been widely applied.